RESEARCH INITIATION AWARD: Micromotor Control Electronics

9309280 Garverick The general objective of the proposed research project is to develop closed-loop control electronics for electrostatic micromotors which improves motor performance and enables the development of microelectromechanical systems with increased sophistication. Two modes of operation will be supported by the electronics: 1) continuous rotation, needed for devices such as pumps, and 2) discrete stepping, such as required in switching applications. The control electronics will be designed to obtain approximately smooth, continuous rotation with maximum average torque, independent of motor loading (gaseous or liquid medium). Both salient-pole and wobble micromotors will be investigated. ***